Dispersal and Group Dynamics of Chimpanzees and Baboons at Gombe

Different primate species are characterized by differing patterns of dispersal. It is generally felt that the dispersal pattern is an adaptation which may increase the selective fitness of individuals by increasingly their likelihood of mating and hence passing their genes on to subsequent generations. Both chimpanzees and baboons are present in the Gombe Forest of Tanzania and each demonstrates a different dispersal pattern. Among chimpanzees, about half of the females leave their natal group permanently and half leave temporarily. Among the baboons, it is the males who emigrate but the age of first dispersal varies from 3 to 9 years. Additionally, some female baboons leave their natal range at the time when groups divide. In order to attempt to understand the costs and benefits of the different patterns, the PIs will cooperate with Jane Goodall in the use of her detailed field notes; notes which extend back for as much as 20 years. In addition, they will extend the studies of both species at Gombe for the next three years by direct observation. In cooperation with Tanzanian scientists, they will also test the relationship of the richness of the habitat to the dispersal patterns by initiating new studies on the plant species distributions within the ranges of each species.